Quantifying long time statistical properties of a few fluid models

Wang
DMS-1008852

The principal investigator and colleagues study the issue of
quantifying the long-time statistical properties of a few
prototype fluid systems via long-time statistical properties of
suitable discrete dynamical systems related to temporal and/or
spatial approximations. The physical problems considered are the
Rayleigh-Benard convection at large Prandtl number and/or small
Ekman number regime, and a few related simplified models. In
particular, the methodology developed is applied to numerically
quantify an important physical long-time statistical quantity,
the averaged heat transport, in a few convection models. The key
issue here is the design, analysis and implementation of schemes
that are efficient and convergent (in the sense that the
stationary statistical properties of the discrete system converge
to those of the underlying system). Approximating long-time
behavior of large complex systems is a well-known challenge
because small errors could accumulate and amplify. Additional
difficulties related to multiple scales (induced by large Prandtl
number, small Ekman number, large Rayleigh number), and
generalised dynamical system (such as the 3D Boussinesq system)
are also addressed. Suitable random perturbations of the fluid
systems are considered in order to ensure convergence to the
physically relevant long-time behaviour.

Quantifying long-time statistical properties is of great
importance in applications. Besides well-known applications in
classical turbulence theory, it is also extremely important in
climate studies because the predicted climate is the long-time
statistical behaviour of the underlying climate model. The
models to be investigated, although far from practical climate
models, share several important mechanisms that are crucial to
realistic climate models, such as energy-preserving nonlinear
advection, rotation, convection, dissipation/damping and forcing.
A clearer understanding of long-time statistical behavior in this
setting helps us better understand many geophysical fluid
phenomena, and provides guidelines for accurate numerical study
of climate changes. The project also provides abundant
opportunities for graduate students, including student from
underrepresented group, to participate in the modeling, analysis,
and computation of many physically motivated problems.